Long-Distance Constraints on Short-Distance Physics

Continuing research in theoretical physics will examine elementary
particles through their long-range interactions. Applications
include quantum chromodynamics, the increasingly confirmed but
still not fully-analyzed theory of the strong nuclear interactions, and
"solitons," objects critical to elementary-particle theory, string
theory, and condensed-matter physics. The work is important
because of the fundamental systems studied, and productive because
long-range interactions give strong constraints on microscopic structure.